NSF Young Investigator Award

The goal of this research is to understand how forces between molecules and between molecules and the surfaces of covalently bonded solids control the fundamental nature of reactive processes involved in the growth of electronic materials (e.g. Si, GaAs, InP, Diamond).